Generalized Functions and their Applications

In this three-year U.S.-Yugoslav cooperative research project in mathematics between Bogoljub Stankovic of the University of Novi Sad and Thomas Boehme of the University of California at San Diego, the investigators will study generalized functions and their applications. The investigators will apply their theory to solutions of partial differential equations, estimates of error, problems of theoretical physics, and numerical procedures for solving mathematics models for singular perturbation problems. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the governments of the United States and Yugoslavia. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. Grants are made to the principal scientific institution in Yugoslavia, but include dollar funds for U.S. scientist travel to Yugoslavia and for Yugoslav scientists' living expenses in the U.S.